GC-MS for Instructional Improvement of Organic Chemistry

A GC-MS is being used for the enhancement of all organic laboratory instruction, both lower and upper division courses as well as the organic chemistry lab for non-majors. Specific experiments are proposed for each laboratory class that will afford the students the opportunity to become familiar with both the instrumentation and the data analysis. *